CAREER: Scaling Plant Life History, Ontogeny, Diversity, and Ecology: Elaboration of a General Model

One of the central problems facing biology is to identify the general
principles that govern the evolution of form, function and diversity.
Adding to this problem is the complexity of connecting pattern and process
across several scales of biological organization. The career development
plan will allow for the development of a rigorous integrative training
program in biological scaling at the University of Arizona. The proposed
research program consists of two parts: 1) Expand a general allometric
framework to account for patterns of ontogenetic growth across vascular
plants. This focus will provide theoretical extensions and empirical
assessments of allometric theory to account for patterns of ontogenetic
growth and allocation across vascular plants; 2) Extend theoretical
framework to quantitatively predict how physiological aspects of plants
and variation in allocation and growth rate ramify to influence numerous
attributes of large-scale dynamics in ecological communities and
ecosystems. This line of investigation is geared toward: (i) documenting
prominent scaling laws associated with the production and allocation of
biomass across ecological communities; (ii) elucidating how the
constraints of plant allometry influences the size structuring and
dynamics of ecological communities; and (iii) highlighting a novel theory
for the movement of resources and energy through ecosystems. The
multifaceted research proposed will combine elaboration of allometric
theory, the compilation of large global datasets, and experimental
greenhouse manipulations to assess the quantitative predictions of new
theoretical insights. The proposed research will contribute to a
significant advancement in our ability to mechanistically predict the
scaling of pattern and process in biology.